United States Global Change Research Program

This proposal will support the United States Global Change Research Program Coordination Office in serving, coordinating, and representing the USGCRP as an integrated, coordinated program. The objective of this office is to be the coordinator of the interagency process. This involves a diverse array of activities to carry out the mission given to the Subcommittee on Global Change Research (SGCR), and which are not strictly within the purview of any of the individual participating agencies.